Modernization of Physical Chemistry Teaching Laboratory and Other Advanced Undergraduate Courses

The study of fast reactions constitutes an important, fascinating and demanding area of work to which undergraduates should be introduced. The focus of this project is the use of laser spectral techniques in the physical chemistry laboratory to study fast kinetic processes and to thereby reinforce concepts presented in the classroom. This Instrumentation and Laboratory Improvement (ILI) award from the Chemical Instrumentation Program will help the Department of Chemistry at the University of Wisconsin at Milwaukee to acquire laser instrumentation that will be used to enhance undergraduate laboratory instruction.